UT Chemical Engineering Summer Workshop

9352994 LeBlanc The University of Toledo will initiate a three-week residential, Young Scholars project in chemical engineering for 40 students entering the 11th and 12th grades. The UT Chemical Engineering Summer Workshop will provide an exciting introduction to the field of engineering using a variety of experiences including laboratory experimentation, hands-on computer instruction, independent group investigations and field trips. Student presentations of engineering experiments during the academic year follow up complete the program. ***